Mathematical Sciences: Southern California Geometric Analysis Seminar

9310381 The principal investigators propose to continue the management of the Southern California Geometric Analysis Seminar. The purpose of the seminar is to gather together scientists and graduate students working in the general area of Geometric Analysis for two days of lectures by six distinguished researchers in this area. Topics covered will be at the forefront of current research and the infrastructural value of the seminar series is justified.